RUI: Effects of Continuum Structure in Photodetachment and Recombination Processes in Atomic Theory (Physics)

This project involves the theoretical analysis of the importance of continuum structure in various photoionization and recombination processes in atomic physics. These processes can be influenced by continuum structure associated with autoionizing states or external dressing by a laser. The project involves (1) studies of laser induced continuum structure at energies near an autoionizing resonance; (2) extension of a quantum mechanical treatment of recombination near an autoionizing resonance to allow for magnetic sublevels and multiple continuum eigenstates, and (3) studies of threshold shifts in strong field photodetachment. Specific projects for undergraduates, that involve laser induced continuum structure and threshold shifts in negative ions supporting near-threshold autodetaching states, are included.